Triaxial Superdeformation in Nuclei Near N=100

Atomic nuclei are known to exist in a variety of shapes which
include spherical, prolate (like a football), oblate (like a doorknob), and
octupole (like a pear). Although these are different shapes, they
all have one common factor: they are all symmetric about at least one axis.
Somewhat surprisingly, the most difficult nuclear shape to identify is one in
which there is no symmetry axis, which would look like a kiwi fruit. A
nucleus with this asymmetric shape is often said to possess ``triaxial
deformation'' or have ``triaxiality.'' In fact, only a few nuclei have
established cases of triaxial deformation. However, this shape only occurs in these
nuclei when it is in a highly excited state. Here, the nucleus is
significantly more elongated or more deformed than when in a less excited state.
This phenomenon is known as ``superdeformation,'' and therefore when the
nucleus is also triaxial it is said to have triaxial superdeformation. It
was once thought triaxial superdeformation would only occur in nuclei with
neutron numbers near N = 94, but recently we discovered possible triaxial
deformation in an isotope of hafnium having N = 102. In order to confirm this
shape, we must perform another experiment with higher statistics than the
first, to search for the presence of wobbling excitations. These are the
quantum equivalent to an asymmetric top being spun which would display a
wobbling motion. We will also begin a search for evidence of triaxial
superdeformation in the neighboring tantalum nuclei with neutron
numbers near N = 100. Therefore, it is our intent to firmly establish this
region of nuclei as having stable triaxial deformation.

We will also participate and possibly lead experiments utilizing
neutron-rich radioactive beams at Oak Ridge National Laboratory. Until recently,
these species of isotopes could not be studied easily as few methods
existed for exciting the neutron-rich nuclei. However, Oak Ridge can now
produce beams of these rare isotopes for further analysis. Participation in
these experiments will better prepare the principal investigator to
propose future experiments at this facility and eventually at the Rare Isotope
Accelerator. In addition, a make-shift radioactive beam can be used at the
Florida State University laboratory to study select neutron-rich nuclei.

Undergraduate involvement will be vital in all of these projects.
Students will learn basic nuclear physics techniques at the Naval Academy,
and then apply this knowledge at the laboratories where this work will be
completed. The opportunity to use world-class facilities will hopefully propel
these students into scientific careers.